Problems in Extremal and Probabilistic Combinatorics

The proposed project covers several important topics in Extremal and
Probabilistic Combinatorics. The first group of questions concerns the
Ramsey and Turan numbers of sparse graphs. More precisely, the author
wants to study degenerate graphs, i.e., graphs in which every subgraph has
bounded average degree. Here one goal is to show that such graphs have
Ramsey numbers which grow linearly in the size of the graph. An additional
goal is to obtain tight estimates for the Turan numbers of degenerate
bipartite graphs. Both problems were posed many years ago by Erdos, and
despite all efforts are still open. Another set of questions deals mainly
with the study of the chromatic and choice numbers of graphs. The author
plans to study two conjectures about graphs whose choice number is equal
to their chromatic number. Since usually there is a huge gap between these
two parameters, cases in which equality holds are extremely interesting.
Another set of questions is about asymptotic properties of random graphs.
Here investigators goal is to understand the distribution of independent
sets of nearly optimal size in sparse random graphs, and use this to
determine the asymptotic behavior of its choice number. It is sometimes
the case that an existence proof, supplied by the probabilistic method, is
not sufficient and it is better to have an explicit construction. One of
the major open problems in this field is to construct exponentially large
graphs, without a clique or an independent set of size k. In this project
investigator intends to consider this problem together with its bipartite
version.

Leave nothing to chance. This cliche embodies the common belief that
randomness has no place in carefully planned methodologies. In modern
Combinatorics at least, nothing can be further from the truth. Here the
Probabilistic Method has been developed intensively and become one of the
most powerful and widely used tools. Use of probability proved to be
helpful in tackling many long standing open problems. Another major reason
for the development of this method is the important role of randomness in
Theoretical Computer Science. Here algorithm which make random choices
during its execution proved to be simplest and fastest for many
applications. The PI plans to develop new probabilistic tools and
techniques and apply them to various combinatorial problems. Some of these
problems and conjectures have been open for few decades.